Expanded Dissemination of NSF Curriculum Developments at theFronties in Education Conference to be held November 11-15, 1992 in Nashville, Tennessee

This project will provide funds for the expanded dissemination of innovative developments in engineering curricula by increasing publicity activities and providing travel grants to principal investigators on 17 NSF sponsored projects who will present their results in special sessions of the Frontiers in Education conference. The conference has become one of the premier vehicles for the communication of new methodologies in engineering education and the project will accelerate the dissemination of new results and also increase awareness of the NSF programs devoted to course and curriculum to curriculum development.